Pathways of Mineral Alteration and Organic Synthesis in Hydrothermal Systems on Mars

This award in the Mars-Rock Special Research Opportunity activity supports theoretical evaluation of mineral alteration in hydrothermal systems by Dr. Everett L. Shock of the Earth and Planetary Science Department, Washington University. The project is funded by the Office of Polar Programs, the Chemistry Division, and the MPS Office of Multidisciplinary Activities. Martian meteorites show isotropic, petrological and mineralogic evidence for hydrothermal or aqueous alteration of the martian crust. The presence of thermaphilic microbes in terrestrial hydrothermal ecosystems raises the possiblity that subsurface life, independent of photochemistry, atmospheric chemistry, and the presence of a surface hydrosphere, may exist or have existed in hydrothermal environments on other planets. In order to develop a predictive model for crustal alteration on Mars, all petrologic, geochemical and isotopic data on minerals and organic compounds in ALH84001 and other martial meteorites will be used to examine various pathways for the formation of carbonate minerals, polycyclic aromatic hydrocarbons, and other organic compounds during water-rock reactions. Rigorous, quantitative models of geochemical mass transfer based on irreversible thermodynamics will be used. The results will determine the constraints on temperatures and fluid compositions required for mineral alteration and organic synthesis. Recent advances in the theoretical geochemistry of hydrothermal systems and ongoing research in geochemical bioenergetics will be used in developing the model. The research will involve conducting theoretical mass-transfer calculations that simulate the reactions of aqueous fluids with a rock of the composition of martian meteorites to establish the ranges of temperature and fluid composition consistent with the deposition of carbonate minerals without the formation of hydrous silicate phases. The conditions leading to carbonate deposition will be compared to those necessary for synthesis of aqueous organic compounds from carbon dioxide. Specific attention will be paid to whether polycyclic aromatic hydrocarbons are compatible with the alteration assemblage at metastable redox equilibrium. The discovery of microbes capable of living in terrestrial hydrothermal conditions raises the possibility that life may have existed in similar conditions on Mars or other planets. A theoretical model that compares geological conditions to the requirements for organic synthesis will be developed. The result will be an analysis of the potential for martian hydrothermal systems to support hydrothermal ecosystems.